Technical Services

9610226 Carignan This award to Skidaway Institute of Oceanography provides shipboard technical support (as required), shore-based support, instrument maintenance and instrument calibration for researchers using R/V Blue Fin, a research vessel operated as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct studies in the North Atlantic Ocean in 1997, and will emphasize studies of coastal oceanography along the Southeast United States. ***